Postdoctoral Research Fellowship in Plant Biology

9303612 Springer This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received her Ph.D. from Purdue University and her Ph.D. research was in the area of corn genetics. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. R.A. Martienssen at Cold Spring Harbor Laboratory. The proposed research entitled "Study of leaf development using enhancer and gene traps in Arabidopsis" will expand the scientific experience of this Fellow into molecular biology and developmental biology. As part of the research training plan, she plans a 6-month visit to John Innes Institute in the United Kingdom. ***